PGE/PG: Project Advance: Advancing Women and Girls in Math and Science

The goal of this planning grant is to complete preparation to submit a well researched and designed proposal to the NSF Gender Equity program for a large collaborative grant in next year's funding cycle. this grant will enable a range of activities increasing the involvement of girls and women from the fourth grade through college in math and science. Under the planning grant, we will investigate and research a possible large collaborative project involving
- after-school science clubs for elementary and middle school girls,
- after-school science clubs, internships and summer science camps for high school girls,
- training community college and four-year college women students to lead and mentor high school girls in after-school science clubs and summer science camps,
- investigating and improving the climate for gender equity for girls and women in the partner institutions,
- and educating middle school, high school, community college, and four-year college faculty in issues of gender equity in the teaching of math and science.
The middle and high school activities will take place throughout three large school districts in partnership with three non-profit public service organizations, a community college and a four-year college.